Protein Crystallization - Nucleation and Growth Kinetics

The long-term objective of this research is to determine the growth conditions that limit the structural perfection of protein crystals and, thus, the structural information obtainable by diffraction techniques. Towards this end, the growth kinetics of selected proteins will be studied and correlated to growth morphology and x-ray diffraction resolution. The growth kinetics and morphology will be investigated in a temperature controlled microscope-stage growth cell using transmission differential interference contrast and reflection interference microscopy in combination with digital image processing.